Intergrating Programing into Engineering Education through Context-Setting and Scaffolding

9550458 Guzdial Our world is changing in ways that make learning a critical skill-a verb, not a noun. When our engineering students enter the workplace, they will find: That organizations as a whole need to learn, and that individuals who can learn are highly valued (Senge, 1992), that the half life of their engineering knowledge is something on the order of five years (Lohmann & Stacy, 1990); and that the artifacts they design and build must lend themselves to being learned by their users; and it makes sense to design them so that users can learn the artifacts easily (Norman, 1993; Soloway, Guzdial, et al., 1994a). Modern cognitive science has cast new light on learning. We know that successful learners are active learners: They seek to understand deep structure in what they learn, they integrate what they learn into what they knew previously, and they index learned knowledge so that it is usable later (Farnham-Diggory, 1990;kolodner, 1993). Passive learners who rely on knowledge being served to them in terms of lectures and presentations are not successful learners-we cannot expect passive learners to be able to learn from new situations without someone there to package the new knowledge for them. Active learners learn based on two components: * Activity: Students who are active learners are actively doing, and are learning in order to better engage in that doing. Support which enables a student to be successful and learn from an activity is called scaffolding (Palincsar, 1986;Wood, Bruner, et al., 1975). * Context: The situation in which students learn has a significant impact on what students learn and how well they may use the learned knowledge later (Farnham-Diggory, 1990). My research and teaching plan are geared to prepare students for life in a learning society. My research is focused on defining, implementing, and evaluating methods that lead to active learning, particularly using (1) context-setting and (2) scaffolding techniques. I apply the se methods in engineering education because of the critical need for engineers who can learn and the ready access to engineering educators who are willing to explore innovative methods in education at Georgia Institute of Technology (Georgia Tech). My teaching plan has two focuses: (1) on using these same methods in my own and other computer science education and (2) on teaching these methods to others. The specific research I propose in this research is to apply the methods of scaffolding and context-setting to enabling the use of programming as an activity in engineering education. My hypothesis is: * Programming can be an effective and efficient activity for engineering education, achievable by (1) redefining the activity of programming and (2) creating environments to support this redefinition based on techniques of context-setting and scaffolding. Products of this work: * An empirically evaluated theory of the technological context- setting and scaffolding needed to integrate a complex activity (programming) into a range of domains in engineering education. * The creation of a general programming environment to improve engineering education by providing students with the opportunities to define and debug processes in a domain-oriented manner. * A set of courses at the undergraduate, graduate, and continuing education levels to inform students about educational technology. Impacts of this work: * Engineering education will be improved through use of a tool for students in active learning. * Educational technology will have a theory to guide future development of supportive and guiding structures in software to achieve active learning. * Improvements in computer science education based on the research into context-setting and scaffolding. ***